ITR/AP: Grid Telemetry

This proposal requests support for the development of grid telemetry acquisition techniques for grid-enabled applications and instrumental middleware and fabric level devices. Such telemetry data can be used for monitoring a wide area distributed IT infrastructure, for providing information to resource decision making services operating in the grid environment, and importantly for providing feedback to distributed application developers and middleware toolkit designers. The grid telemetry infrastructure will be developed within the context of the distributed IT infrastructure being deployed for the ATLAS experiment currently under construction for the Large Hadron Collider (LHC) at the CERN Laboratory in Geneva Switzerland, the GriPhyN project, and the Particle Physics Data Grid. The NSF/ITR GriPhyN project is developing the basic technologies required to realize a "virtual" data grid in which researchers from four experiments in particle and astrophysics will gain efficient and transparent access to distributed data and computational resources.